Studies in QCD Modeling of Hadron Physics

0071361
Tandy
Theoretical investigations of hadron properties and interactions will be
carried out through a non-perturbative modeling of Quantum Chromodynamics
(QCD), the strong interaction field theory of quarks and gluons.
Specific topics to be addressed include: meson decays and meson interaction
coupling constants and form factors, the mass and important decay modes of an
exotic meson (rho-hat(1405) that is beyond the reach of the constituent
quark model, issues beyond the ladder Bethe-Salpeter approximation and
relevant for the masses and flavor mixing of eta and eta-prime mesons
as well as the 3P0 scalar meson nonet, CP violating decays of hadrons,
and hadron properties at finite temperature and baryon density. The work is
aimed at providing a bridge between quark-gluon dynamics and effective hadron
dynamics that will be necessary as experimental programs, such those at
JLab and RHIC, probe nuclear interactions at a distance scale within the
size of hadrons.
The approach being followed is fully covariant, incorporates absolute
quark confinement and dynamical chiral symmetry breaking, and implements
solutions of the quark-antiquark Bethe-Salpeter equation directly in 4-space.
The models of continuum QCD are guided by, and developed from, the
truncated Dyson-Schwinger equations for the dressed propagators and vertex
functions. Phenomenology enters through the modeling of the infrared
form of the gluon two-point function. In the ultraviolet region, care is
taken to preserve the one-loop renormalization group behavior of the
running coupling. Parameters are fit to the low mass pseudoscalar meson
properties. This produces a description of hadron observables in terms
of quarks dressed with nonperturbative gluon effects. The distributed
space-time extent of the meson modes is retained. Integral equation and
eigenmode techniques are used in numerical investigations.